Research Experience for Undergraduates in Chemical Engineering

9322049 Shuler This Research Experiences for Undergraduates project at the School of Chemical Engineering at Cornell University will involve students in such diverse areas as biotechnology, materials processing, energy conservation, and environmental management. The undergraduate experience will emphasize intellectual independence, initiative, the ability to work in teams, and effective communication skills, attributes that are difficult to teach in formal classroom instruction alone. ***